Applications of Model Theory to Representation Theory

The principal investigator intends to apply model-theoretic
methods to the representation theory of Lie algebras and
noncommutative rings, as well as to the K-theory of a pointed
abelian category. One of the main goals of the project will be
to generalize classical results about finite-dimensional
representations to the pseudo-finite dimensional case - a
representation of an algebra is called pseudo-finite dimensional
if it satisfies the axioms for a finite-dimensional
representation. A theory of pseudo-finite dimensional
representations has already been introduced for the Lie algebra
sl (2,k), and the project is devoted to generalizing this theory
for the case of a finite-dimensional semisimple Lie algebra L ,
as well as the corresponding Lie group G(L). The project will
also focus on the complex of positive-primitive formulae in the
language of modules over an associative ring R. The aim will be
to establish a relationship between the homology of this complex
and the K-theory of the free abelian category over R.

Symmetry plays an essential role in the study of physical objects
that occur in Nature. The symmetries of an object - think, for
example, of a crystal or a butterfly - are the rigid motions that
bring the object back onto itself. These symmetries form an
algebraic structure, called a group. In this way, we can
associate to every physical object its group of symmetries. In
representation theory, the mathematician considers a group G as
an abstract object and attempts to classify all the objects of
which G is the symmetry group. Traditionally, research has
focused on the case where the objects are finite-dimensional
vector spaces. In this project, the methods of mathematical logic
are applied to include the infinite-dimensional cases called
pseudo-finite dimensional. These are the situations that the
limited power of expression of the mathematical language in use
cannot distinguish from the finite-dimensional. It has been shown
that many such objects exist, but to unlock the secrets behind
any particular one of them remains a baffling question.